REG: Contour and Surface Analysis System

Partial funding is provided to support purchase of a contour profilometer and a surface measuring instrument system capable of computer interfacing. The equipment will be utilized in a number of projects on surface finishing, friction modeling, surface degradation and tribology in general.